Topics in Smooth and Symplectic 4-Manifolds

DMS-0305818
Ronald Fintushel

One of the central problems of low-dimensional topology is the
classification of smooth simply connected 4-manifolds. New
constructions have confused the issue of
classification, but also have invigorated the theory and reinforced
its richness and diversity. Still further examples are needed to
identify a suitable classification scheme, and the proposer intends
to work on such constructions. The ultimate goal of the proposer is
to develop enough techniques for new constructions of smooth and
symplectic 4-manifolds that a general picture for classification will
begin to emerge.
The broader impact of this proposal will address the relationship
between mathematics and theoretical physics, opportunities for
graduate and undergraduate students in topology, and career
development of postdoctoral fellows. The proposer will study
geography problems for symplectic manifolds which have been shown to
impact physics via the notion of 'superconformal simple type'.
Another basic goal of this proposal is the development of problems
which are accessible to graduate and advanced undergraduate students.
This proposal presents problems which will be suitable thesis
problems for the proposer's future students. It also discusses
computational problems which the proposer plans to give to advanced
undergraduate students. The proposer will also support graduate and
undergraduate students during summers and encourage their
participation in conferences. Problems posed in this proposal will
also be useful for postdoctoral fellows at Michigan State.

The theory of 4-dimensional manifolds is important for both
mathematical and physical reasons. In mathematics, topology of 4
dimensions lies at a crossroad, where one can try to apply
well-developed techniques of low-dimensional (3 and fewer dimensions)
topology, and also one might hope to utilize powerful techniques of
high dimensional topology, such as surgery theory. In many ways, the
most interesting techniques come from neither of these approaches,
but rather from analogies with complex surface theory and input from
high energy physics, where for obvious reasons 4-dimensional theory
is central. This proposal, takes this latter view.
Its key techniques revolve around the Seiberg-Witten equations
arising in quantum field theory.
--